Finding Similar Folds Between Three-Dimensional Protein Structures by Dihedral Sequence Comparison

This project is investigating applications of dihedral sequence comparison (DISCO) to protein structure comparison and protein folding problems. DISCO transforms atomic coordinates into one-dimensional dihedral sequences, then applies the BioSCAN sequence alignment computer to find segments with similar three-dimensional folds. The goals of the DISCO project include: (1) exploring new algorithms and representations of the three-dimensional structures of folded proteins by one-dimensional sequences; (2) exploring the use of the BioSCAN system to compare these sequences; (3) developing statistically-based scores for measuring the structural similarity of folded protein segments by comparing their dihedral sequences; (4) developing a robust computational system based on BioSCAN for protein structure analysis; and (5) making the DISCO system available over the Internet to the scientific community.